Investigation of Probable Volcanic-Tectonic Activity on the Reykjanes Ridge

In 1989 a long lasting earthquake swarm was detected near 60 degrees north on the Reykjanes ridge. The area of the swarm has been mapped and imaged by SeaMARC II and Hydrosweep in 1990, and suggests the presence of two apparent young lava flows. During the summer of 1992 the Russian research vessel Keldysh with its two deep-diving MIR submersibles will investigate, verify, and sample these two flows. The award is to provide support for the principal investigator to participate in the cruise.